Late Quaternary Nitrogen Fixation and Paleoproductivity Oscillations in the Caribbean Region

This ESH project will study nitrogen isotopes and other sediment variables from a core in the anoxic Orca Basin to test the conclusions of a similar study in Cariaco Basin. The Cariaco data have been interpreted as showing glacial/interglacial changes in N 2 fixation resulting from varying denitification rates determined by varying oxication state in the bottom waters. Replication of the same record in Orca Basin would indicate that the variations were at least regional in scale.